"The Biodiversity Analysis Pipeline"

This NSDL services project is developing the Biodiversity Analysis Pipeline (BAP), an open-source application, to allow anyone - from students to educators or citizens to scientists - to create novel analyses of primary diversity data and then share these analyses through a collaborative community. The intellectual merit of the project includes allowing users to contribute new information by providing them access through an intuitive and rich Web interface. The broader impacts of the project includes introducing Web 2.0 methodologies into the biodiversity community, which includes students of all ages, formal and informal educators, land managers in a variety of state and federal agencies, and ecological and conservation biology researchers. Because BAP directly accesses major biodiversity data hubs, it serves as a model for how to use a range of data sources and NSDL Pathway projects.